The 28th Annual Cliometrics Conference to be held at Miami University, Oxford, Ohio, in May 1988.

The Cliometric Conference series, now in its twenty-eighth year, continues to serve as an important means for encouraging research in economic history and as a forum for disseminating new methods, findings, and interpretations among historians as well as economists. A special effort is made to include the work of graduate students and assistant professors representing a broad range of specialities but with increasing emphasis on twentieth century problems. The scientific results of the cliometric history movement have been impressive and promise to be equally important in the years ahead. The next meeting is scheduled to be held at Miami University, Oxford, Ohio, in May l988.